Self-Timed GaAs Building Blocks for High Performance Systems

The proposal is to investigate methods for building self-timed circuit modules in a gallium arsenide (GaAs) process that are suitable for assembling into larger systems that also exhibit self- timed behavior. Gallium arsenide holds great promise for implementing extremely high performance integrated circuits but this speed also makes system design difficult. Systems designed using these modules can be faster, more robust, and easier to design than their globally clocked counterparts. Since self-timed techniques also allow subsystems of widely varying speeds to work together, such systems may be improved incrementally by directly replacing slower CMOS parts with faster GaAs parts. As a first step towards the goal of building fast self-timed GaAs systems a set of circuit modules are built with the PPL tool suite developed at the University of Utah. PPL can hide many of the complicated problems with GaAs circuit design and allow the designer to focus on the functionality of the system. Combined with the benefits self-timing this should provide an attractive methodology for designing extremely fast systems and exploring aspects of concurrent systems in gallium arsenide.